Cobordism of Configuration Spaces and Its Applications

9802616 Morava In previous work, the author showed that Witten's tau-function for topological gravity in two dimensions has a homotopy-theoretic interpretation as a kind of topological field theory taking values in a category of modules over a ring-spectrum. This ring-spectrum is a large-genus completion of the moduli space of stable algebraic curves; it is constructed by homotopy-theoretic methods from spaces of configurations of smooth points on such curves. Its cohomology has many features reminiscent of a vertex operator algebra, which is in turn connected to the theory of symmetric functions. The methods of cobordism theory have not been systematically applied to the study of configuration spaces, but questions in a variety of areas suggest that this merits investigation. It is particularly important to extend the results mentioned above to topological gravity coupled to a sigma-model, to encompass quantum cohomology along the lines suggested by T. Eguchi and his school. The interest of physicists in two-dimensional gravity has shed more light on the topology of the moduli space of Riemann surfaces than all previous research in this very classical subject combined, but their work answers questions that are not, at first sight, what a mathematician might want to ask, and it has been difficult to understand these new results in terms of the traditional mathematical approach to this subject. It is becoming increasingly clear that configuration spaces and cobordism techniques are at the geometric heart of the physicists' constructions, and that their intersection lies in a rich part of algebraic topology that has till now escaped systematic study. In physics, it is always taken to be an encouraging sign when `experimental' applications suggest new `theoretical' questions for investigation; this is what seems to be happening here in mathematics. ***